Automorphic Distributions, Summation Formulas, and Applications

DMS-0301172
Miller, Stephen D.

Abstract

Title: Automorphic Distributions, Summation Formulas, and Applications

The research of the PI (Miller) focuses on the analytic theory of
automorphic forms. The proposed research concentrates on automorphic
distributions, a technique he has been investigating with Wilfried Schmid
(Harvard University). They hope to use these distributions to develop
summation formulas, similar to Poisson's and Voronoi's, whereby arbitrary
sums weighted by modular form coefficients and additive twists can be
dualized. The PI plans to investigate various applications of the
distributions and these summation formulas. Many concern developing new
constructions for automorphic L-functions, in particular approaches for
which archimedean and ramified computations are possible. Another is to
problems in analytic number theory, such as the subconvexity problem for
cusp forms on GL(n). The PI also plans to refine a numerical algorithm
which identifies modular forms, by reversing summation formulas.

The study of automorphic forms slices across many important areas of
modern mathematical research, including number theory, representation
theory, geometry, analysis, and mathematical physics. Through L-functions,
Langlands has conjectured many deep and interesting structural
relationships between automorphic forms which have implications in the
above areas. As an example, the work of Wiles et al demonstrates the link
between certain automorphic forms and the ancient problem of solving
equations between squares and cubes. The proposed research aims to apply
and develop new tools for automorphic forms and L-functions from analysis,
which is the branch of mathematics expanding calculus, and representation
theory, the concrete study of symmetry. Current applications of
automorphic forms and L-functions are manifest in constructing the
sophisticated codes which enable high-speed and secure transactions over
the internet.